Partial Support Conference - Tectonics Coast Mountains Orogen

This action provides partial support for a Penrose conference entitled "Tectonics Coast Mountains Orogen" to be held May 16-21, 1992, in Bellingham, Washington with field trips to Vancouver and Hope British Columbia.